Developmental Regulation of Dictyostelium

The development of multicellular organisms is a complex process whereby programmed changes in gene expression give rise to specific changes in cellular physiology, morphology and behavior. Our long term goals are to understand the control of gene expression and its relationship to morphogenesis in the cellular slime mold Dictyostelium discoidium. These studies have addressed the genetic regulation and function of the discoidin lectins and have isolated and characterized regulatory gene mutants affecting transcription, demonstrated translational control, examined cAMP and folate mediated down-regulation, and shown that discoidin is required for normal cell morphology and cytoskeletal organization during aggregation. The investigators now wish to a) determine the signal transduction pathways responsible for down-regulation, b) examine the mechanisms of translational control in drsA strains, c) establish the relationship of discoidin to the cytoskeleton and d) characterize the dynamic behavior of discoidinless mutants during aggregation. They use a combination of molecular genetic, biochemical and cell biological techniques to accomplish these goals.